Mathematical Sciences: Curve and Surface Reconstruction fromUnorganized Data

Scientists and engineers often encounter data in the form of a relatively dense collection of points on or near the surface of the object of interest; and one objective is to reconstruct the surface of the object. Examples come from medical imaging, machine vision, industrial engineering, statistical analysis for high-dimensions, and geometric modelling. This research will develop algorithms for such problems when neither the topology nor the geometry of the surface are known a priori; both must be inferred in automated fashion from the data points.